Establishment of DNA Sequencer Facility

Funds are requested to acquire an automated DNA sequencer. This instrument will be integrated, as a facility, into the Institute for Biological Research and Technology at the University of South Carolina. This facility will eliminate the necessity of research laboratories at the University from either the lengthy process of establishing manual DNA sequencing or the continued utilization of valuable technical personnel for DNA sequencing projects. Our estimate is that the facility will generate at least 10,000 nucleotides of sequence per month. the users of the facility include faculty in both the Department of Biological Sciences and the Department of Chemistry and Biochemistry. The scope of projects to be supported by automated DNA sequencing include: 1. Analysis of androgen mediated gene expression 2. Mechanism of the enzyme thymidylate synthase 3. Analysis of the genome of Caulobacter crescentus 4. Analysis of fish stocks 5. Analysis of species distribution and variation 6. Role of histones in spermatogenesis 7. Patterns in embryonic development Progress on each of these projects will be greatly facilitated by the acquisition of this instrument.